SGER: Space Weather Impacts and National Policy

The research proposed here will extend existing assessments of the technological, social and economic impacts of space weather on our society today and in the future. It will also identify means for accelerating the improvement and benefits of space weather services.